GaAs by Liquid Phase Electroepitaxy in Gllium Bismuth Solution

The objective of Phase I of this innovative materials research program is to develop a high quality, advanced semiconductor material, which is currently not available to the government or the commercial marketplace, using a variation of the Liquid Phase Electroepitaxy (LPEE) growth technique. The specific goal is to establish the advantages of the LPEE process for production of bulk single crystals of GaAs using a Ga1-xBix melt instead of a Ga melt as a solvent. It is strongly suspected that this research approach will lead to significantly enhanced semiconductor materials for government and commercial device manufacturers. The successful completion of the Phase I and II efforts will provide a revolutionary high quality material for a wide range of government and commercial applications far into the 21st century. This would directly provide technological and economic benefits to the nation.